EAGER: Vectorial Anisotropic Body and Surface Wave Tomography Using USArray Data

Robust modeling of both strength and orientation of anisotropic
structure is a tantalizing tool for constraining the dynamic processes in the lithospheric and
sub-lithospheric mantle beneath North America, directly meeting the Earthscope goals of understanding
the active deformation of North America and tying it to deep Earth structure and
dynamics. The long term goal of this research is to develop more detailed regional and global
models of seismic anisotropy that can both illuminate the dynamic processes of the upper mantle,
as well as allowing for direct comparison with geodynamically predicted models. The
objective of this EAGER application, which is the next step towards this long-term goal, is to
develop a new approach to image dynamic processes in the lithospheric and sub-lithospheric
mantle beneath North America with a novel technique combining both body wave and surface
wave observables that allows for finite-frequency vectorial tomography. The international collaboration
proposed here is uniquely suited to bring these approaches the PI and the research
group of S´ebastien Chevrot have been working on together and take advantage of the incredible
dataset offered by the USArray transportable array to move towards obtaining an unprecedented
model of anisotropic structure beneath North America. The project will develop these models
by pursuing the following specific aims. 1) Perform synthetic testing of joint inversions using
this new approach. The inversions will allow us to gain unprecedented information about both
strength and orientation of anisotropy. 2) Assemble and process USArray shear splitting and
surface wave data and merge and improve existing software between the two research groups.
Dense data coverage of both splitting intensity and multi-taper fundamental mode phase delay
will be possible, and since both approaches have been developed from a consistent elastic parameterization,
merging the software and performing joint inversions of the data shows great
potential for greatly improving the capabilities of anisotropic modeling.